Modern Video-Integrated Microscope Systems for Introductory Through Senior-Level Laboratories

The Department of Geological Sciences is purchasing a variety of optical equipment for use in a three-tiered approach to undergraduate education. The first tier is use of video- integrated microscopes in the introductory-level laboratories to increase student comprehension and laboratory productivity. The second level is the introduction of video technology into the upper-division undergraduate laboratories studying texture, composition and optical propoerties of minerals and rocks. The third level is the establishment of an undergraduate research microscopy laboratory.